Mathematical Sciences: Numerical Techniques in Control and Optimization

Numerical methods for solving optimization problems will be developed and analyzed. The research will focus on: a). The Dual Active Set Algorithm, a new algorithm developed by the principal investigator for solving mathematical programming problems, will be studied in the context of linear programming quadratic programming and minimax. b). An augmented Lagrangian type algorithm for mathematical programming problems will be reformulated in a way that is appropriate for large scale optimization. c). Approximation techniques for optimal problems, will be extended to handle state constraints. The main emphasis will be placed on applying these optimization techniques in the study of electric fields generated in thunderstorms.